CAREER: Making Exponential-Time Learning Algorithms Efficient

In the past fifteen years, researchers have developed new algorithms
for machine learning (computer programs that learn from experience)
that have excellent theoretical guarantees on their error. These
so-called multiplicative weight update algorithms receive inputs (like
an image taken by a robot), and make a prediction as to whether or not
that image came from a particular location. The theoretical error
bounds imply that the number of mistakes made by these algorithms is
guaranteed to be very small. However, many applications of these
algorithms require an enormous amount of time to learn and predict.
Thus special techniques must be employed to make them efficient. The
investigators study new, general, theoretical techniques to make these
algorithms faster. This research also involves empirically evaluating
such algorithms in new areas, including computational biology, which is
studied extensively at the investigators' university. Applying
theoretical techniques to real problems creates a better understanding
of the real-world problems and helps direct future theoretical work,
guiding the transfer of results from theory to practice.

Specifically, the investigators study multiplicative weight-update
algorithms such as Weighted Majority (WM) and Winnow, which have
on-line mistake bounds with a logarithmic dependence on N, the total
number of features. This attribute efficiency allows them to be
applied to problems where N is exponential in the input size, yielding
great flexibility in their application areas. Such areas include
pruning decision trees, pruning ensembles of classifiers, learning
finite geometric concepts, learning DNF formulas, and using
pseudo-Bayesian predictors over finite hypothesis spaces. However, a
large N requires techniques to efficiently compute the weighted sums of
these algorithms. This research explores methods to overcome this
difficulty, including exploiting commonalities among the features, and
the more general approach of using Markov chain Monte Carlo (MCMC)
methods to estimate the total weight contribution without the need for
special structure in the problem. The investigators also are applying
their algorithms to various problems in computational biology,
including drug activity prediction, analyzing microbial population
dynamics, and identifying special types of human genes.